Oceanographic Instrumentation

The Chesapeake Bay Institute of Johns Hopkins University will acquire several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V RIDGLEY WARFIELD, a research vessel operated by the University. A substantial part of the ship's operating schedule during 1989 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the institution to support research and engineering activities. The instrumentation includes: -Data storage devices and other peripheral computer equipment for the ship's data logging and display system, -Replacement oxygen and conductivity sensors, -Precision acoustic pingers for determining position of an instrument package relative to the surface or seafloor, and -Niskin bottles for collecting discrete seawater samples at various depths in the water column, The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.